NSE/NIRT: Nanoscale Sensing of Single Cell Surface Receptor Affinity for Individual Ligands

CTS-0210718
Denis Wirtz, Johns Hopkins University
Title: NIRT: Nanoscale Sensing of Single Cell Surface Receptor Affinity for Individual Ligands

This proposal was received in response to Nanoscale Science and Engineering initiative, NSF 01-157, category NIRT.

The PI's are planning to use novel techniques based on the modification of an AFM tip to measure the affinity of a single cell surface receptor to its ligand. The approach is quite innovative and would result in significant new developments in this area.